Instance-Based Theorem Proving with Semantics and Equality

First-order logic is a common formalism for representing mathematical and other formal knowledge. Many traditional techniques for proving first-order theorems on a computer suffer from severe inefficiencies on certain kinds of problems such as near-propositional highly non-Horn problems. Under previous grants, theorem proving strategies have been developed that avoid many of these propositional inefficiencies. These include hyper- linking and hyper-linking with semantics. The latter method is able to make use of realistic models, or semantics, of the problem. However, the kinds of models it can use are limited to those involving linear inequalities and those with finite domains. This approach will now be extended to include a much more general class of models, those whose functions and predicates are computable. First-order logic with equality is a more powerful formalism that is also often applicable. For this formalism, methods based on term-rewriting systems are commonly applied. The above-mentioned semantic techniques will be extended to first-order logic with equality. Other topics related to equality will also be studied, such as rigid E-unification and specialized algorithms for handling permutations that arise from equational systems. A general framework---recently developed for studying the search efficiency of theorem proving strategies, and applied in a largely propositional context---will be extended to first-order logic. Complexity issues related to term-rewriting proofs will also be studied. ***